Basic Physics and Measurments of Pure electron Plasmas in Crossed-field Amplifiers and Micro-Field Emitter Arrays

This grant is intended to study the basic nonlinear physics of pure electron plasmas in crossed-field amplifiers (CFAs) and in Micro-Field Emitter Arrays (MFEAs). The study includes in situ measurements in the interaction region of a low frequency (100- 200 MHz) CFA which has been designed specifically for making such measurements. These include three-dimensional measurements of the electron density, rf field, plasma potential, electron energy distribution functions, and noise mechanisms using a variety of standard and newly developed diagnostic probes. The study of MFEAs concerns the emission from vacuum field-emitters which will have many innovative applications in electron devices such as the CFA. This emerging technology also requires a study of the electron beam dynamics in a very small scale which represents a new area of plasma research. New miniature diagnostics will be developed for these studies. For the proposed three year program, both the macro and micro aspects of pure electron plasmas using the existing CFA and MFEAs as our experimental vehicles will be studied. MFEAs will be further used in the CFA as a cathode and as a controllable distributed emitting-sole in order to evaluate their effectiveness and to study their effects on CFA physics.